Mathematics Achievement and Performance in Science for Native American Young Scholars

9553517 Berken St. Norbert College will initiate a three-week Young Scholars project for thirty Native-American students entering eighth grade. The focus of the summer residential program will be a thematic one, Mother Earth, integrating mathematics and science. The students will take part in activities that call for them to conduct experiments, make measurements, analyze data and work with computers. Working with college faculty, local school educators, and Native-American mathematicians and scientists as role models, these young men and women will have the opportunity to build a solid foundation for a lifelong interest in mathematics and science.